Integrating Fourier Transform Infrared Spectroscopy (FT-IR) into the Chemistry Curriculum

This project will give undergraduate chemistry students at Stockton State College the opportunity to work with a modern computer-controlled FT-IR system. The instrument will enhance substantially the laboratory instruction in Organic Chemistry, Physical Chemistry, and Laboratory Methods. Students completing their senior thesis requirement in chemistry will use the instrument in research projects. In addition, students in the biology, environmental studies, and physics programs will use the FT-IR system in laboratory courses and research. The FT-IR instrumentation and associated accessories and software will form the focus for introducing undergraduates to Fourier transform techniques, computer-controlled instrumentation, database searching, and computer- assisted data collection and manipulation. Diffuse reflectance and cylindrical internal reflectance accessories will allow students to explore the most modern sampling techniques for infrared spectroscopy.